Cross talk and Metabolism in Escherichia coli

This project is to study the genetic and molecular basis of regulatory interactions termed cross talk between the phosphate (PHO) regulon and genes in the creABCD, formerly called phoM, operon and to define the biological role of the creABCD operon in Escherichia coli. The project focuses entirely on regulatory interactions involving the creABCD operon. The PHO regulon encodes genes for the acquisition of environmental phosphorus (P) and is induced when the external (ext) inorganic phosphate (Pi) level is growth limiting. The creABCD operon, whose expression is unaffected by Pi(ext), seems to respond to the level of an internal (int) organophosphate formed in central metabolism, which may be formed in substrate-level phosphorylation (in glycolysis or the TCA cycle) at a step where Pi(int) is incorporated into organophosphate. Regulatory interactions are expected between genes in a metabolic pathway; Pi(ext) to Pi(int) to organophosphate (int) in which Pi(ext) regulates the PHO regulon and organophosphate(int) may regulate both the PHO regulon and the creABCD operon. Such cross talk may be an example of an underlying control mechanisms essential for general (global) control of cell metabolism and growth; this is especially apparent in the control of gene expression in bacteria, but may quite possibly play the same role in eucaryotic cells too.